Advances in Chemical Metallurgy - Conference and Workshop, Bombay, India, January 9-13, 1991 Group Travel Award in U.S.and Foreign Currencies

Description: This project supports the participation of 17 U.S. scientists at an International Conference and Workshop on Chemical Metallurgy, to be held in Bombay, India, between January 9 and 13, 1991. The Indian organizer is Dr. C.K. Gupta of the Bhabha Atomic Research Center (BARC). The topics of the conference will include: physical chemistry of metal extraction; experimental techniques and measurement in metallurgical thermodynamics and kinetics; advances in pyro-and hydro-metallurgy of metals and of sulphides; oxide and halide reduction processes with special reference to the extraction and refining of refractory and reactive metals; nuclear metals and materials processing; rare earth metals technology; electrothermics, melting and refining; fluidized bed processes; minerals processing; chemical vapour deposition; plasma and laser applications in material processing; vacuum metallurgy; ultrapurification; computer applications in process metallurgy; process modelling and optimization; and energy conservation and pollution control in metallurgical processes. The binational workshop will identify areas for future collaboration between U.S. and Indian scientists in the following broad topics: process metallurgy and optimization; energy conservation and pollution control in metallurgical processes; reagents in mineral industries; and solvent extraction and electrowinning of base metals. A workshop proceedings is planned to be published and distributed to U.S. and Indian interested scientists. Scope: The field of the conference and workshop is very important for the recovery and utilization of metals in view of the energy and environmental concerns in the U.S. and in India. The two cooperating scientists, and the proposed U.S. participants are all well known and respected researchers in the field. BARC is one of the largest and most productive research organizations in India. The binational workshop should greatly enhance the potential for scientific collaboration between India and the U.S.